A Real World Model for Introductory Chemistry Laboratory Curricula

9353996 Bayer The project provides funds for four workshop sessions to introduce participants to the use of "real world chemistry" in their laboratory courses. An existing set of experiments - familiar to and preferred by individual instructors - are placed into a real-world context appropriate for the local community. Students become "chemist employees" in the laboratory of a local organization or industry and work on these experiments reformulated as current projects of that organization's laboratory. The "transformation process" describes how science teachers without real-world experience can search out chemists in their local area and extract useful scenarios that can be added to existing introductory experiments. The process has provided an enthusiastic response from students and motivation for further consideration of a science career. ***